Weak Lensing: Analysis Tools for Current and Future Surveys

This program will build and test an analysis pipeline for gravitational lensing survey data, and apply it to two existing datasets. The analysis pipeline will be scalable to the very large surveys planned for the next generation of telescopes. In parallel the proposers will develop forecasts for the cosmological accuracy of lensing surveys that: (a) include information from different lensing statistics, and (b) allow for varying, realistic levels of systematic errors in the lensing data, photometric redshifts, and undertake theoretical calculations. These will be used to develop strategies for different lensing surveys.